A Phosphorimager for Molecular Biology Research and Teaching

This request is for funds to purchase a Molecular Dynamics PhosphorImager for use in research and teaching in molecular biology. This instrument will be critical for research applications of at least eight faculty as well as in training undergraduate and graduate students in molecular biology. Autoradiography using storage phosphor technology offers several advantages over traditional detection methods. Quantitation of amounts of radioactive protein or DNA on gels or filters has traditionally been done using X- ray film and densitometry or using scintillation counters. Storage phosphors are up to 100 times more sensitive than X-ray film, enabling measurements well below levels of detection for film. Also, screens are quantitatively accurate over five orders of magnitude as compared to X-ray film which has a linear range over only two orders of magnitude. The new technology is also environmentally advantageous because it eliminates the heavy metal waste disposal problems associated with film processing, and when it replaces scintillation counting it reduces mixed organic and radiochemical waste disposal problems. This technology will enable new experimental approaches, improve quantitation, enhance productivity, and it will afford our students state of the art training.